Graph Traversal

Graph traversal is a fundamental computational problem, not only because it is the natural abstraction of many search problems, but also because its complexity is at the root of important relationships among deterministic, non- deterministic, and probabilistic computations. There has been exciting progress made during the last few years toward understanding the complexity of graph traversal, and there are surely more breakthroughs in store very soon. This project consists of a number of integrated approaches for investigating the time and space complexity of graph traversal, including pseudo-random walks, universal traversal and reflecting sequences, and time-space tradeoffs in the rich structured setting of ``jumping automation for graphs'' (JAGs).